Topics in Algebraic Topology Based on Knots

9808955
Przytycki
This project concerns the 11-year-old program of building an
algebraic topology based on knots (or more generally on the position of
embedded objects). That is, the basic building blocks are considered
up to ambient isotopy (not homotopy or homology). For example, one
starts from knots in 3-manifolds, surfaces in 4-manifolds, etc. This
is a far-reaching program. Until now, one has been limited to 3-manifolds,
with only a glance towards 4-manifolds. The principal objects of the
theory are skein modules. One of the simplest skein modules is a
quantization of the first homology group of a manifold. In general,
skein modules of 3-manifolds are quotients of free modules over ambient
isotopy classes of links by properly chosen local (skein) relations.
The situation is somewhat reminiscent of that of ``classical'' algebraic
topology 100 years ago (before Poincare's fundamental paper ``Analysis
Situs,'' in 1895. Even three years ago one was able to compute only a
few isolated examples, with the hope that the theory would rise in the
future to a beautiful and powerful theory (the only exception was the
Turaev-Przytycki construction of the Hopf algebra on the third skein
module of the product of a surface and the interval). The situation
has started to change in the last three years, and most of the progress
concerns the Kauffman bracket skein module and its relation to character
varieties of the fundamental group of a 3-manifold and the hyperbolic
structure on a manifold.
Topology, as foreseen by Leibniz in 1679, is the art of analyzing
geometrical figures taking into account their position only; it does not
take magnitudes into consideration (Leibniz called this art ``geometry
situs''). In more modern language, topology describes spaces up to
stretching and bending (but cutting and pasting is not allowed). Because
of their flexibility, topological spaces are hard to analyze. In his
fundamental paper of 1895, Analysis Situs, Henri Poincare associated
topological spaces with algebraic objects that are invariant under space
deformation (he called his objects homology and homotopy groups). The
field of algebraic topology arose from the work of Poincare. Knot theory
is the oldest branch of topology, first considered by A. Vandermonde in
1771. It studies the position of a circle (say a piece of rope with ends
glued together) in space. Knot theory also has its roots in physics.
W. Thomson (Lord Kelvin) proposed, in 1867, a theory of vortex atoms:
that atoms were knotted tubes of ether. It was an aim of his friend P.G.
Tait to describe the physical and chemical properties of particles in
terms of the properties of related knots. Although the vortex theory
was soon rejected, knot theory quickly developed to become an independent
branch of topology. By the 1970's, some thought knot theory was out ot
steam. Thus it came as a surprise when in 1984 Vaughan Jones discovered
new algebraic invariants of knots (i.e., Jones polynomials). Jones'
work was a breakthrough, providing solutions to old conjectures. In the
same spirit as Leibniz, one would call the branch of mathematics that has
its roots in Jones' construction, and Drinfeld's work on quantum groups,
``algebra situs.'' It encompasses the theory of quantum invariants of
knots and 3-manifolds, algebraic topology based on knots, q-deformations,
quantum groups, and overlaps with algebraic geometry, non-commutative
geometry, and statistical mechanics.
***